Using Plant Responses to Environmental Variations to Improve Teaching and Research in Plant Biology

Both teaching and research in plant biology are improved by providing students with opportunities for investigative experiences in the areas of plant ecology and physiology. In the required introductory plant biology course, students measure the effects of environmental variation. Research-based laboratory modules enhance students' knowledge of physiological processes and of scientific inquiry. Advanced ecology students study the importance of environmental variation on primary production in lakes of contrasting water quality. Experiments designed by ecology students test hypotheses concerning the effects of environmental variation on plant structure, and research projects may involve collaborative studies in plant physiology, ecology, and molecular biology. Students also gain an understanding of plant processes affected by environmental variation; an improved ability to design, execute, and interpret experiments; and an increased appreciation of the role of plants in ecological systems.